Travel Support for 16th IFIP W.G. 7.3 International Symposium on Computer Performance Modelling, Measurement and Evaluation; Rome, Italy, Sept.29-Oct.1, l993

The 16th IFIP W.G. 7.3 International Symposium on Computer Performance Modelling, Measurement and Evaluation will be held in Rome, Italy, during September 29-October 1, l993. This symposium is the premier technical meeting that examines the state-of-the- art in computer performance evaluation. Increasing the level of participation of scientists and engineers from the United States will enhance the level of exchange and cooperation with European, Asian, African, and Australian researchers. Airfare for six United States-based participants to attend the symposium is provided.